A high-resolution slide scanner for enhanced community access to digital petrography for teaching and research

Thin sections are glass slides that are embedded with thin slices of rock and other geologic materials. Viewing a thin section under a microscope is one of the best ways to learn about the composition and structure of rock at the microscopic scale. This project has two parts. First, it will acquire a state-of the-art microscope that is designed for rapid scanning of thin sections at high-resolution and available for use across the broader U.S. Earth science community. Second, it will develop a web-based platform where scanned images can be explored, analyzed, and downloaded using just an internet browser. This activity will produce a first-of-its-kind catalog of thousands of high-quality thin section scans that are accessible to the U.S. public. Ultimately, this project will promote the progress of Earth science in the U.S. by advancing the accessibility and widespread use of digital thin sections for teaching and research.

Thin section petrography is a fundamental tool used across multiple disciplines in the Earth sciences. High-resolution scans of thin sections offer many benefits, yet there are barriers to widespread access to digital petrography. This project aims to overcome these barriers by acquiring a state-of-the-art slide scanner for Earth Science community usage and developing a web-based platform for disseminating digital thin sections to the public. The slide scanner is capable of rapid-throughput digitization (up to 100 scans per day) at high resolution (up to 0.345 µm/pixel). The scanner also enables multiple lighting configurations (including transmitted, polarized, and reflected light) to characterize samples. Slide scanning will be free to U.S. based academic institutions during the grant period. Ultimately, this project will assemble thousands of high-quality petrographic images and associated metadata, producing a first-of-its-kind dataset that may be explored via the web-based interface. The project website will also highlight curated sample sets of particularly exemplary thin section scans to enable both teaching and research. To promote usage, PI Sharman will develop a series of laboratory exercises for an undergraduate course in sedimentary petrology and will engage the community by hosting a short course.